Doctoral Dissertation Research in Sociology

This is a doctoral dissertation project to study the conditions under which organizations make decisions and take actions. Organizations sometimes act according to routine rules, sometimes chaotically with no clear predictability. Organizational theories are sufficiently incomplete to make it difficult to ascertain the conditions for routine behavior versus crisis management. The study will attempt to build an organizational theory. The theory will be built on a case study of how the Federal Aviation Administration initiates and modifies rules and policies regarding air safety. This study will have both theoretical and practical implications. It will provide an important addition to organizational theory, and new insights into when and why organizations such as the FAA make decisions according to routine rules and when their decisions and actions are based on reactions to external conditions.